Curvature and Topology

DMS-0104077
Stephan Stolz

The principal investigator proposes to study the question
which manifolds admit Riemannian metrics of positive scalar
and Ricci curvature, respectively. Concerning the
first question, previous work of the principal
investigator shows that these questions boil down to
computing abelian groups which depend only on the
dimension, the fundamental group and the first two
Stiefel-Whitney classes of the manifold these metrics
live on. The role these groups play in the
existence/classification problem for positive scalar
curvature metrics is analogous of the role of Wall's
surgery obstruction groups in the existence/classification
problem for smooth structures. The principal investigator
hopes to gain an algebraic/functorial understanding of
these groups by studying various maps that relate these
groups with homology/K-theory/connective K-theory of
classifying spaces of groups, and with the K-theory of the
associated group C*-algebras. Concerning positive Ricci
curvature, the investigator is pursuing a proof of his
conjecture that the existence of a positive Ricci
curvature metric on a spin manifold with vanishing
first Pontryagin class implies the vanishing of its
Witten genus. This invariant arose from considerations
in string theory. Heuristically it is the index of a yet
to be rigorously defined "Dirac operator" on the free
loop space of this manifold. Mike Hopkins has described a
homotopy theoretic way to define the Witten genus of a
family of such manifolds which lives in the elliptic
cohomology of the parameter space. It is a very interesting
challenge to express the elliptic cohomology and the
family Witten genus in terms of the objects that string
theorists are analysing and thus to give a geometric
interpretation of Hopkins construction.

These projects fit in the general framework of trying
to relate the topology of a manifold (qualitative
information about its global shape) and its geometry
(quantitative information about its local shape). For
2-dimensional manifolds (like the surface of a ball or
a tire), a nice classification has been known for a long
time: Two such surfaces have the same topology (that is,
they can be deformed into each other if we think of
them as being made of thin rubber) if and only if they
have the same number of `holes' (the surface of a ball
no holes, the surface of a tire or a cup has one hole,
and a pretzel has two holes). Moreover, if a surface has
`positive curvature' in the sense that the angle sum in
each triangle whose edges are geodesics (shortest curves)
is larger than 180 degrees, then this surface has the
same topology as the surface of a ball. It is a major
goal of modern day mathematics to generalize these
results to higher dimensional manifolds. For example,
our universe is a manifold of dimension 3, Einstein's
space-time has dimension 4, and manifolds of dimension 10, respectively, 26 play a crucial role in the theoretical
physics of the attempted unification of the four
fundamental forces.